Dissertation Research: Population Biology, Phylogenetic Systematics, and Conservation Management of Spiranthes diluvialis

9310810 Ranker This research project will address three questions central to understanding the evolution of the rare orchid, Spiranthes diluvialis, and ensuring the future existence of this threatened species 1) What is the phylogenetic or genealogical history of S. diluvialis? 2) What is the genetic structure and variation within and among populations of S. diluvialis? and, 3) What is the interplay between life history stages and environmental conditions and how do these parameters impact the continued existence of S. diluvialis? %%% This research will provide information critical to formulation of conservation management plans for S. diluvialis as well as data on the basic biology and evolution of this threatened species. This study is the first to explore the origin of a polyploid species (a species with more than two sets of chromosomes) in the Orchidaceae through the application of molecular techniques. The research will provide information regarding the possible allopolyploid origin (via hybridization of two genetically distinct diploid species) of S. diluvialis and its distinctness as a species. Electrophoretic data will allow identification of the putative parental taxa and provide insight into the genetic variability present within the genus. Knowledge of the evolutionary origin of S. diluvialis will provide a meaningful framework for and insight into both genetic and ecological studies critical to the continued existence of this rare orchid. *** 9310810 Ranker This research project will address three questions central to understanding the evolution o f the rare orchid, Y U F ( Times New Roman Symbol & Arial p Y " h _ ea e Z Ranker/Arft Abstract Dissertation Elizabeth M. Behrens Elizabeth M. Behrens